REU Site: National Artificial Intelligence Institute for Exceptional Education

This project aims to serve the national interest by preparing undergraduate students to contribute to the responsible development of artificial intelligence (AI) technologies that improve educational outcomes for children with communication challenges. The project plans to provide a 10‑week summer research experience that helps undergraduates build technical skills, strengthen problem‑solving abilities, and gain confidence as emerging researchers. The significance of the project lies in its focus on AI for public good, its emphasis on student development, and its potential to advance understanding of how undergraduates learn to apply computational methods to socially meaningful problems. By engaging students in collaborative research, professional development, and community‑building activities, the project intends to expand access to high‑quality research experiences and support the national need for a well‑prepared STEM workforce.

The project’s goals are to introduce students to AI and machine learning research, develop undergraduates’ computational and analytical skills, and engage students in mentored research aligned with the scope of the University at Buffalo National AI Institute for Exceptional Education. Students will contribute to research on AI‑enabled tools for early detection and individualized support for children with speech and language processing challenges, including work in areas such as reinforcement learning, dataset development, and algorithmic modeling. The project plans to integrate research seminars, structured mentoring, and professional development workshops, as well as assess student learning through formative evaluation and the use of the EvaluateUR platform. Findings and project materials will be disseminated through presentations, publications, and Institute outreach activities to contribute knowledge creation in undergraduate AI education. This project is funded by NSF's Improving Undergraduate STEM Education (IUSE) program, which supports research and development projects to improve the effectiveness of STEM education for all students.